Nuclear Theory and Applications to Astrophysics and Particle Physics

This project will use nuclear theory to probe issues of contemporary importance in astrophysics and particle physics. Nuclear effects that affect experiments to determine neutrino masses and oscillation parameters and experiments to detect and identify the dark matter that is believed composes most of the universe will be calculated. An accurate treatment of beta-decay from the neutron-rich nuclei that play an important role in r-process nucleosynthesis will be developed, and the long-standing puzzle of nuclear structure physics with regard to the extreme hindrance of beta-plus transitions in the region of neutron numbers near 82 will be studied. Studies of quark effects in nuclear systems will be pursued.